International Conference on Dynamical Systems and Differential Equations, May 24 - 27, 2002, University of North Carolina at Wilmington

ABSTRACT

PI: Feng, Wei and Lu, Xin
Proposal: DMS-0139710
Institution: University of North Carolina at Wilmington

The Fourth International Conference on Dynamical Systems
and Differential Equations will be held at the University
of North Carolina at Wilmington on May 24-May 27, 2002.
This is a continuation of the Conference
Series on Dynamical Systems and Differential Equations, a biennial
event with a new hosting university each time to benefit
researchers in USA. Details, including history of past
conference series, can be found at http://AIMsciences.org.
The goal of this conference is to gather mathematicians and
scientists, with different training backgrounds and research
interests, to report on their recent achievements, exchange
new ideas and look for future directions.

A majority of the NSF funds will be used specifically for
partial support of 35 graduate students and
ten new Ph-D's in mathematics. Priority will be given for
support of students from under-represented groups in mathematics.